IEEE International Symposium on Workload Characterization (IISWC) Student Subsidy Proposal

This project will support students to attend IEEE International Symposium on Workload Characterization (IISWC) which is to be held December 2-4, 2010 in Atlanta, GA. The workshop covers all aspects of workload characterization and will help provide students an opportunities to learns about this important area. The students will be asked to write a two page summary of their observations about the topics discussed.